An Upgrade to Enhance the Computing System Capabilities to Expand the Use of UNIDATA Supported Applications for Education and Research

The Department of Earth Sciences at Millersville University requests matching funds to enhance the existing configuration of Unix workstations, expand the memory capacity on the primary meteorology server, and replace existing X-terminals with Unix workstations. This request is driven by increased demands on current system because of upgrades in Unidata software and "intensive and escalating student and faculty use" of Unidata provided software.